Mathematical Sciences: Subgroups of Simply Presented AbelianGroups

This project is concerned with the structure and classification of isotype subgroups of simply presented abelian groups. The research is based largely on the recent infinite combinatorial characterization of summands of simply presented groups and the further exploitation of separability, equivalence theorems and valuated structure on quotient groups. These new developments provide a unified point of view for a broad assault on a variety of problems that cut across the traditional divisions in the theory of abelian groups. This project is concerned with the classification of infinite abelian groups. The structure of finite abelian groups has been well understood for over a century. Infinite abelian groups, however, have remained elusive. This investigator will attack this problem from a new point of view.